Regulation of Ornithine Transcarbamylase and Its Function inPlant Nitrogen Metabolism

Several of the major nitrogen metabolic pathways are impacted by activities of the arginine biosynthetic pathway. In plants, little is known regarding the metabolic regulation of arginine biosynthesis. Similarly, mechanisms regulating the activity of ornithine transcarbamylase (OTC), the enzyme that catalyzes the first committed step in the arginine biosynthetic pathway, are unknown. The dynamics of nitrogen allocation to the arginine, pyrimidine nucleotide and polyamine biosynthetic pathways will be investigated under different physiological conditions, using radiolabeled precursors and specific inhibitors of these pathways. These experiments will be carried out in two model systems (tobacco transformed with the nopaline synthase containing Ti plasmid pGV3850 and osmotically-stressed oat leaf) in which high rates of arginine utilization in the tissue would be expected to support elevated arginine pathway and OTC activities.%%% Nitrogen metabolism in plants is affected when the plant is stressed. This project investigates the pathway of polyamine biosynthesis and how it is regulated during stress. This will lead to a better understanding of the changes taking place in the plant. Interventions will be possible to protect plant productivity.***//